Study of Pressure-Induced Phase Transitions Through Vibrational Spectroscopy

9402443 Jayaraman This project will explore, characterize and attempt to rationalize pressure-induced phase transitions in some select rare earth containing oxide materials using mainly Raman and infrared spectroscopy to pressures up to 50 giga pascals. Pressure-induced phase transitions including amorphization are observed in these systems. It is hoped to establish criteria for pressure-induced amorphization by investigating the detailed behavior of some select molybdates at high pressure and elevated temperature. In one of the rare earth oxides it is hoped to achieve metallization at pressures near 40 giga pascals and test the exciting possibility of high Tc superconductivity. Pressure induced transitions in certain perovskite oxides will be investigated. The stability of the perovskite structure at high pressure and temperature will be examined. The results will be significant to materials science as well as to earth science. % % % % High pressure is a route to transform materials into novel states, of interest to science and technology. The most spectacular example in this context is the well known conversion of graphite to diamond under high pressure and temperature. Current advances in pressure generation techniques using the diamond cell make it possible to subject materials to hitherto inaccessble regions of simultaneous high pressure and temperature. New pressure-induced phase transitions with new material properties are distinct possibilities, such as driving many insulators into metallic state, and in some cases even into superconductors. Surprisingly many oxide systems turn into a new type of glasses at high pressure. The present project will focus on several oxide systems which bear the promise of yielding new material states of interest to technological applications and to basic science. ***